Primary Mathematics and Science Leadership Project

The main goals of the project are to establish a three-year primary mathematics and science leadership project for teachers of grades k-3. There is a subject matter emphasis on statistics and probability, measurement, geometry and the physical sciences. The project develops teachers' leadership capabilities by engendering in them confidence and competence in mathematics and science through involvement in a coordinated program of educational content and methods, including activity-based lessons, strategies for questioning and responding, conceptual knowledge, cooperative learning, writing across the curriculum, appropriate integration of technology, involvement of parents and encouragement of minority and female students. Year one involves ten teams of three teachers representing school districts in the San Francisco Bay Area in a model local leadership development institute which provides 120 hours of instruction and a variety of academic year activities. The teams work together during the year to develop leadership skills and improve science and mathematics education in their classrooms. They also conduct workshops for their colleagues. During the second year the model under development is refined and disseminated statewide through the California Leadership Program. Seven new teams of teachers from different locations in California will join the project. In year three, seven new teams of teachers from the Bay Area districts are joined by seven teams from different locations in the nation. The participant teams are selected from among those recommended by the school districts that have committed to the project. A total of 114 teachers are to participate of which 72 come from the San Francisco Bay Area, 21 from throughout California, and 21 from districts nationwide. There are contributions of $289,819 cost sharing which amount to 289,819/694,060, or 42% of the funds requested from National Science Foundation. The actual duration of the project is 42 months.